Electronic Structure and Properties of Metallic Alloys

The electronic structure and properties of metallic alloys are explored using a combination of experimental probes and sophisticated theoretical and calculational schemes in order to gain new insights into the electronic origin of complex properties of metallic alloys. Problems to be addressed include order-disorder transitions, the effects of constitutional vacancies anti-site defects, size effects, core level shifts and charge redistribution on alloying, and thermally induced magnetic transitions. Several alloys will be examined including Cu-Au, Cu-Pd, Ni-Al, Fe-Rh and Fe-Ni. Principal experimental techniques to be used are ultra-violet and x-ray photoelectron spectroscopies using facilities on-site and at laboratories with synchrotron radiation sources (e.g., at the NSLS and CAMD). The extensive theoretical and computational program involves national and international collaboration. A number of the properties of the alloys selected for study are controlled by the topology of the Fermi surface and so the proposed program includes the visualization and animation of these su rfaces using computer graphics. %%% In addition to the fascinating intellectual challenges that the research promises, the results have important implications for the design of alloys for specific applications.